STTR Phase I: Enhanced Oil Recovery Using Surface Light Scattering Spectroscopy

This Small Business Technology Transfer Research (STTR) Phase I Project will develop a non-invasive technique of Surface Light Scattering Spectroscopy (SLSS) to measure the surface tension, viscosity, and other interface parameters of fluids at high temperatures and pressures. The goal is to increase understanding of the behavior of surfactants and fluids at extreme conditions found in oil reservoirs and to develop methodologies and instrumentation to optimize surfactant type and concentrations for enhancing oil recovery.

The broader impact/commercial potential of this project will be the use of Surface Light Scattering Spectroscopy as a low cost, non-contact, multi-property measurement tool that will help scientists and engineers to better research and understand surface chemical phenomena; to develop new methods and processes based on surface chemistry; and better monitor processes. This technology could lead to shorter development times for new processes and methods and better quality of manufactured products and processes based on surface chemistry.